Workshop on Fuzzy-Neuro Systems

A five day (August 9-13, 1992) workshop on Fuzzy- Neuro Systems is proposed by the College of Engineering and Technology at Tennessee State University to introduce and provide handson experience to the faculty and graduate students from Historically Black Colleges and Universities (HBCU) who have either engineering and or computer science degree programs. A similar five- day workshop on Neural Networks was funded by NSF, in May 20-21, l991 and was extremely successful.